Trace Element Distribution Within, Between, and Among Metamorphic Minerals as a Monitor of Reaction History and P-T Evolution

9903036
Spear
Trace element distribution between coexisting minerals have been
demonstrated to reveal aspects of the history of rocks that are not
recorded by major elements. This arises because of (1) the relatively slow
diffusivity of trace elements in minerals such as garnet, (2) the extreme
partitioning behavior of many trace elements, and (3) the sensitivity of
trace element concentrations to small amounts of reaction progress or P-T
changes. This study seeks to explore the application of trace element
geochemistry in metamorphic rocks towards a deeper understanding of Earth
history.
Suites of rocks from several well-characterized localities will be
examined for trace element zoning in garnet and coexisting minerals.
Observed zoning patterns will be correlated with the distribution and
compositions of accessory phases such as xenotime, monazite, zircon,
apatite and allanite. The zoning patterns will be explained in terms of the
whole-rock reaction history and the temperature dependence of trace element
partitioning between garnet and accessory phases will be calibrated using
P-T conditions inferred from other thermobarometers.
The results of this research will provide new, detailed insights
into the geologic evolution of the areas studied and will, more generally,
provide new tools for the petrologist to apply to the unveiling of Earth
history